Three Dimensional Magma Dynamics in Large Sills

This award supports a project to study the emplacement and solidification of sills in the Dry Valleys region of Antarctica and to compare their histories to similar sheet-like magma bodies on Easter Island and Reunion Island. If the three-dimensional history of emplacement and solidification of sheet-like magmatic bodies could be learned through direct observation, a great advance could be made in understanding the evolution of Earth. Sheet-like bodies of magma may well be responsible for delivering and shaping both the oceanic and continental crusts. Beneath ocean ridges, for example, relatively narrow (~1 - 4 kilometers), thin (100 - 300 meters) ribbons or sills of magma deliver, through a delicate balance between emplacement and solidification processes, the basic structure of the oceanic crust, which forms some 60% of Earth's surface. And basically similar solidification processes in sheets of underplating basaltic magma and high-level invading granitic magma go a long way to delivering and shaping the continental crust through remobilization and sorting of earlier magmas. Learning the dynamic history of sheet-like magmas has, however, proven exceedingly elusive for two simple reasons: lack of vast continuous rock exposures and lack of extensive, clear internal markers to reveal the temporal and spatial history of solidification. Internal layerings are plentiful in the large, well known layered intrusions, but there is little sign of the nature and style of magma filling (e.g., was filling periodic or steady? at discrete points or along fissures? slow or fast? etc.). The many large diabase sills throughout the world broadly show how filling occurred, but rarely do they show any internal indicators or markers detailing the filling and solidification processes themselves. And when a marker, as in the form of trails of large, distinct, previously formed crystals, does occur it rarely can be traced out in three dimensions due to poor natural exposures. T he Basement Sill of Antarctica changes all this. It is thick (300 meters), vast (greater than 5,000 cubic kilometers), superbly exposed, and above all carries a distinct internal marker in the form of a tongue of large (1 - 6 millimeters) orthopyroxene crystals. Moreover, this orthopyroxene tongue varies systematically in thickness, crystal size, and position within the sill reflecting both the filling locations and the rate of filling itself. The documentation of this body and its three dimensional dynamics may well prove to be the "Rosetta Stone" of sheet-like magmatic systems. It is of fundamental importance and is central to this project. The detailed processes that give rise beneath ocean ridges to the structure of the oceanic crust also may well be gained from this study. And the seeds of initiation of continental crust, through Solidification Front Instability and the production of silicic lenses, is also clear in the Basement Sill. As a comparative study, a search for evidence in the lavas of Easter Island may well also establish the importance of this process in volcanic systems.